Support for 1997 Spectroscopies in Novel Superconductors (SNS'97) International Conference; Falmouth, Cape Code, MA; September 14-18, 1997

9712768 Bansil The 1997 International Conference on Spectroscopies in Novel Superconductors (SNS'97) will devote one week to the research area of superconductivity, with emphasis on spectroscopic measurements relevant to High Tc Cuprate and related materials. The topics of primary interest include Tunneling, Superconducting Quantum Interference, NMR, Photoemission, Raman and Optical, and Neutron Scattering. Other topics will be discussed, the participants will include world leaders in this area. NSF support will provide financial assistance to young investigators. %%% The 1997 International Conference on Spectroscopies in Novel Superconductors (SNS'97) will devote one week to the research area of superconductivity, with emphasis on the High Tc Cuprate and related materials. The focus will be on current topics relating to the formation of the high Tc superconducting state and the physical mechanisms which operate. The participants will include world leaders in this area. NSF support will provide financial assistance to young investigators. ***